Mobile Science for Rural Middle and High School Teachers

This project is designed to reach rural middle school and high school science teachers in Colorado through the use of a mobile science show followed by an intensive summer workshop and networking activities. The Mobile Science Show will bring workshops and demonstrations to more than four hundred (400) rural teachers, from which fifty (50) will be selected to attend the two-week summer workshop. The fifty teachers will form the core of a network for the future sharing and dissemination of materials and ideas.